Construction Industry Institute/National Science Foundation Co-Sponsored Workshop Entitled, "How We Use Research to Improve the Engineering and Construction Industry."

9700436 Pritchett The workshop will be conducted in five working groups who will address the following topics: 1. How do we go from incremental to break-through research? 2. What are creative processes to form and identify research opportunities? 3. How to address industrial, general building and infrastructure sectors? 4. How can the engineering and construction industry learn from research? 5. How do we use what we know about people to achieve results? Attendees will address issues related to the five listed topics in an open format that promotes creative thinking and innovative approaches to produce research results of future benefit to the engineering and construction industry.